AMANDA II Antarctic Muon and Neutrino Detector Array

The PI proposes to:
1. Analyze AMANDA II data and a program, Eview, for muon propagation in ice.
2. Develop and test a fused silica module.
3. Develop a fluorescence data logger to be lowered at the time of drilling a hole in ice. This device is to provide a way to characterize the optical property of ice as a function of depth.
Funding for the duration of three years is recommendation. Funding level for years two and three will depend on IceCube funding.